School on Instrumentation in Elementary Particle Physics, Bombay, India; February 15-27, 1993, Award in Indian and U.S. Currencies

Description: This proposal requests partial support for the 1993 School on Instrumentation in Elementary Particle Physics, sponsored by the International Committee for Future Accelerators (ICFA) and the Tata Institute of Fundamental Research (TIFR), Bombay where the school will be hosted. The program includes a series of lectures covering many topics in particles physics instrumentation that will be augmented by "hands-on" participation in six laboratory experiments designed to demonstrate the material presented. The opportunity to participate in the experiments sets this school apart from others aimed at the same audience of graduate students and young Post Docs from developing countries. The 1993 IFCA School is the first held in Asia, and it is expected that most of the 70-80 students will come from the Pan-Asian region. Its goal is to encourage young physicists from developing countries in elementary particle physics experiments and provide them with the knowledge and skills that will enable them to undertake detector development for these experiments. Scope: The purpose of the school is foster initiatives in detector development at the participants' home institutions and to initiate collaborative efforts that involve physicists from both technically advanced and developing countries. The goal of increased foreign collaboration is timely considering two factor: 1) the ambitious program of detector develop- ment in the US during the next decade that is linked to the commissioning of the Super- conducting Supercollider and 2) the shortage of trained scientific manpower in the US in the field of experimental elementary particle physics.